Reliability Methods in Environmental Geotechnology

The research focuses on obtaining a better understanding of the behavior of waste remediation systems that may be difficult to visualize using traditional deterministic method. Concepts such as redundancy, weakest link, robustness and complexity of the system are explicitly addressed. The objective is to improve the design of those systems coast-effectively to achieve a desired level of the system performance. The approach requires the formulation of a reliability model relating the waste remediation system performance and the system parameters.